Experimental High Energy Particle Physics

This award provides continued support for the hadron collider-physics program of the experimental high-energy physics group at Northeastern University, Darien Wood - PI, for a three-year period. The intellectual merit follows from the new era of discovery and understanding which has and will continue to progress in the field of particle physics. The group works on two large experiments: the DØ experiment at the Fermilab Tevatron and the CMS experiment at the CERN Large Hadron Collider. With a carefully balanced effort, the group plans to continue to make major contributions to each experiment, to clarify the status of a Standard Model low-mass Higgs at DØ and to explore dramatic signatures of new physics at CMS. The broader impact includes the education and mentoring of postdoctoral associates and graduate students and continued involvement in the Boston Area QuarkNet program as well as the cooperative education program at Northeastern University which allows the group to routinely involve undergraduates in six-month projects at CERN.